RIA: Sparse Geometric Spanners, Geometric Analysis, and Applications

9409752 Narasimhan This investigation addresses the Sparse Geometric Spanner problem and its many variants. Given a graph G and t1, a t-spanner is an edge subgraph G' of G such that the distances between every pair of vertices in G' are within a factor of t of their distances in G. Geometric graphs have vertices corresponding to points in the Euclidean space and their edge weights correspond to Euclidean distances. Many practical applications require sparse geometric spanners. Sparseness is measured in terms of size (number of edges), and/or weight (sum of weights of edges). Various aspects of the problem will be studied: How to construct sparse spanners (algorithms)? How to analyze quality of the output (geometric analysis)? What is the complexity of the problem (complexity and approximability)? How to design efficient algorithms (practical implementations)? The study of variants of the problem including connectivity-constrained spanners and single-source spanners will also be undertaken. This has applications in analyzing the performance of many practical geometric algorithms and studying optimal geometric structures like minimum steiner trees, optimal spanners, and optimal triangulations. ***